Structured Rational Approximation and Efficient Krylov Methods for Large-Scale Matrix Problems

Large scientific and engineering computations often depend on solving problems involving very large matrices. These computations arise in simulation, control, model reduction, networks, quantum dynamics, data driven modeling, and artificial intelligence. Direct methods can be too expensive in memory or time, especially when the underlying systems have many variables and multiscale behavior. This project develops new mathematical principles and efficient algorithms that make these large matrix computations faster, more reliable, and more accessible. The work advances the national interest by strengthening the mathematical foundations of scientific computing, supporting technologies that rely on large scale simulation and data analysis, and training students in modern numerical analysis, approximation theory, randomized algorithms, and reproducible scientific software. Project outcomes will include open source MATLAB and Octave software, reproducible computational examples, and educational materials that can be used in graduate courses and undergraduate research.

This project develops a unified framework for structured rational approximation and rational Krylov methods for large scale matrix problems. The work has four connected goals. First, it develops convergence theory and pole selection rules for rational approximations in settings where standard potential theory gives limited guidance, including repeated poles and clustered poles near singularities. Second, it builds a systematic theory of inexact rational Krylov methods, with adaptive accuracy rules for the inner shifted linear solves. Third, it incorporates randomized sketching into rational Krylov methods for large Lyapunov, Sylvester, and Riccati matrix equations, reducing orthogonalization and communication costs while preserving convergence behavior. Fourth, it constructs low memory short recurrence rational Krylov methods using conjugation symmetric poles and interpolation points, enabling efficient real arithmetic computation of matrix function actions. Together, these advances will provide sharper theory, practical pole selection laws, scalable solvers for large matrix equations, and memory efficient algorithms for matrix functions.